Electronic Research Projects for Young Men and Women

9452732 Ober Ball State University will initiate a four week, residential, Young Scholars project in physics and engineering (focus on introductory electronics) which emphasizes the use of electronics. Through instructional and research activities, the program will introduce 24 high school students entering grades 11 and 12 to the use of electronic instrumentation, integrated circuits, and signal transducers. The program emphasizes the use of electronics as a tool in the completion of an on-campus research project and a follow-up academic-year research project.